Research Experiences for Undergraduates in Chemistry at Dartmouth College

Professor Michael A. Walters and other members of the Chemistry Department of Dartmouth College are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. During the summer of 1990, ten (10) undergraduate students will spend ten (10) weeks actively engaged in a variety of research projects. Projects range from study of nickel-containing enzymes and chromium adducts with DNA to photochemistry and organic synthesis. Student participants will participate actively in meetings of research groups with faculty members, postdoctoral associates, and graduate students.